SBP 2012 Outreach Efforts to Increase Diversity and Participation of Minorities

This is funding to increase diversity of participation in the Social Computing, Behavioral-Cultural Modeling, and Prediction (SBP) 2012 conference, to be held at the University of Maryland, College Park, from April 2-5, 2012. The SBP conference provides an international platform for collaborative and exploratory research that advances the emerging interdisciplinary field of social computing. It attracts leading researchers in behavioral modeling and social computing from academia, industry and government, who address issues of behavior modeling, analysis, pattern mining, and prediction in domains such as healthcare, privacy, and organizations.

Analysis of attendance at previous SBP conferences has found substantial gender and racial inequalities in participation in the conference, and less disciplinary diversity than desired for this new interdisciplinary field. Project activities include (a) targeted outreach to female, Hispanic, African-American, Historically Black Colleges and Universities, and schools in EPSCoR (Experimental Program to Stimulate Competitive Research) states; (b) targeted outreach to underrepresented academic disciplines relevant to SPB;(c) special invitations to participate for authors in the same categories of schools and disciplines who have had a paper declined; (d) solicitations for student volunteers from the same categories of schools and disciplines; and (e) encouraging diversity in the selection of speakers for the panels held during the conference. Small travel grants and/or conference fee waivers will be used to encourage participation.

Broader Impacts: By broadening participation in the SBP conference, this project will provide new opportunities for interaction across disciplinary boundaries, fostering creative new ways of thinking about problems in social computing and behavior modeling. In addition, the project will encourage members of disadvantaged groups to become involved in STEM research through training, professional development, and community building.